Indigenous Knowledge and Practice in Changing Greenlandic Resource Management Regimes

9403834 Caulfield The proposed research will examine the changing significance of indigenous knowledge and practice in shaping resource management schemes. The principal research question examines whether attempts to integrate indigenous knowledge and practice with Danish management systems have led to more effective resource management in Greenland. The project seeks to understand what forms of indigenous knowledge and practice underlie use of renewable resources in West Greenland, and how indigenous knowledge and practice might contribute to future sustainable development in Greenland under Home Rule. Ethnohistorical materials will be analyzed, hunting lists compled and case studies will be carried out within the framework of the project. These data will additionally be made available to other North Atlantic projects (NABO) and the Danish Polar Centre. ***